Solitons and Instabilities in Quadratically Nonlinear Media

9707529 Stegeman Professor Stegeman will extend his studies of bright spatial solitons in quadratic nonlinear media using nonlinear materials with larger quadratic nonlinearities, and will demonstrate utility of such solitons in a variety of applications. ***